Oceanographic Instrumentation

0513410
Knox
This award to University of California at San Diego will provide instrumentation for oceanographic research for use by the Oceanographic Data Facility of Scripps Institution of Oceanography, as well as specific instruments for use on the four research vessels operated by the institution, R/Vs Revelle, Melville, New Horizon and Sproul. The university, as part of the University-National Oceanographic Laboratory System (UNOLS) research fleet, operates all four of these research vessels. Specific instrumentation to be acquired includes a new CTD instrument plus 24-bottle rosette sampler, various seawater property sensors for use with the CTD and flow-through systems, flat panel monitors to replace CRTs on two ships, rock dredges, upgrades to the nutrient analysis system, slip rings for five winches, and a new, 48-channel digital seismic streamer for geophysical research. The shared-use instrumentation supported here will assist marine scientists conduct studies worldwide on SIO and other research vessels during 2005 and future years.
***